Dissertation Research: The Influence of Immigration on Local Community Structure: Experimental Tests of Theory in Two Beetle Communities

Identifying the mechanisms that structure local communities is a fundamental goal of community
ecology. Historically, ecologists invoked local processes to explain community structure, but
equivocal evidence has broadened debate to include the potential importance of regional
processes in structuring communities. Though experimentation has proven critical in resolving
issues in ecology, theoretical and observational studies have, thus far, been the primary tools used
to examine the effects of regional processes. I propose a series of novel experiments to test
theories that span the range between local and regional control of diversity. Local process,
metapopulation competition, and neutral community theories make predictions about the effects
of immigration that are qualitatively different, mutually exclusive, and testable in the same
immigration experiments. Using a laboratory system of Tribolium flour beetles and a field system
of Cecropia petiole beetles, I will experimentally test these theories by simultaneously
manipulating immigration regime and interaction strength (lab), and exposure to immigration and
distance from colonization source (field). Though recently developed theory suggests regional
processes can have a dominant effect on community structure, the theory must first be confirmed
empirically if community ecology is to gain insight from the regional process perspective.